Gravity Measurements to Bound Instrusive Density at Long Valley Caldera

9902799
Zumberge

The Long Valley, California, caldera is the site of a resurgent volcanic
dome which is experiencing significant deformation. Gravity is sensitive
to both mass and coordinates of the observations; repeated measurements
will provide information on changes in those parameters. These
observations will bound the rates of subsurface mass change and may also
assist in hazard assessment and warning. Gravity at a small number of
sites in Long Valley will be observed with an absolute gravimeter. High
precision relative gravimeter ties to numerous other sites will expand the
spatial coverage. Water table variation effects will be minimized by site
selection on impermeable rock where possible, and by analysis of
hydrological data collected by the USGS. Models incorporating the gravity
with GPS data will be generated; from these, one can infer details of the
underlying deformation dynamics. This project is a collaboration with
Stanford University researchers Paul Segall and Maurizio Battaglia (who are
funded under a grant from DOE).